Purchase of a High Field Nuclear Magnetic Resonance Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists and biologists carrying out frontier research. This RUI award from the Chemical Instrumentation Program, the Instrumentation and Instrument Development Program and the Instrumentation for Materials Research Program will be used by the Department of Chemistry at San Jose State University to help acquire a high-field NMR spectrometer. The areas of research that will be enhanced by the acquisition include the following: 1) Studies of low dimensional solids 2) Observations of intermediates in the folding of ribonuclease A with proton, carbon-13 and nitrogen-15 magnetic resonance 3) Synthesis of polyfluoroaryl polymers and polyfluoroaryl- siloxane copolymers 4) Studies of metal-protein complexes and chemically bonded stationary phases 5) Lanthanide and actinide coordination chemistry.